Studies of Nuclear Reactions and Structure

The Florida State University Nuclear Research Laboratory will operate a tandem van de Graaff accelerator and superconducting linac booster accelerator for low energy nuclear structure studies. The structure of nuclei at high spin will be studied with a new array of Compton-suppressed gamma ray detectors to explore the relation between single- particle and collective degrees of freedom, including superdeformation. Spin dependent effects in reactions will be studied using polarized ions made possible by a laser-pumped ion source. High spin and high excitation energy states will be studied via resonant particle decay spectroscopy. Collective octupole states and nuclei with permanent octupole deformation will be studied in the medium to heavy nuclei region. Appropriate instrumentation will be developed for this work, including a superconducting conversion electron spectrometer. The effects of incomplete fusion on heavy ion induced fission reactions will also be studied using a Bragg curve spectrometer to identify charge states. Planning will occur for a radioactive beam capability. Some low energy studies using specialized national facilities will also continue: at Argonne's APEX detector and at the GAMMASPHERE facility at Berkeley. High energy nuclear research will continue at a number of other labs including CEBAF and RHIC.